Study of an Evaporating Binary Ultra-Thin Film Using a Photoscanning Ellipsometer

This effort is a continuation of a program of basic research on evaporation of thin liquid films. Its objective is to bring the fundamentals portion of this topic to a logical conclusion to pave the way for subsequent application.